RUI: Atranyl-Nucleosides as Ribozyme Probes

Current models for the catalytic mechanisms of protein enzymes are far more advanced
than those for RNA enzymes (ribozymes). This project will contribute to understanding how the
catalytic mechanisms of ribozymes compare with those of protein enzymes. The specific
objectives of this project are to: (1) synthesize atranyl-nucleosides 1-3; (2) characterize and
determine the aqueous stability of atranyl-nucleosides; (3) use atranyl-nucleosides as transition
state analogues (TSAs) to study the hammerhead and lead-dependent (leadzyme) ribozymes via
collaborations; and (4) train undergraduate students in synthetic organic techniques in
preparation for graduate study and/or careers in science. TSAs are useful for enzyme studies;
however, suitable TSAs for phosphoryl transfer reactions are lacking. Compounds 1-3 have an
atrane moiety incorporated into a ribonucleoside. The atrane contains a trigonal bipyramidal
silicon, germanium, tin, or titanium atom; and thus, 1-3 mimic the oxyphosphorane transition
state of the ribozyme-catalyzed reaction. Compound 2 is a protected phosphoramidite that
contains uridine and deoxyadenosine connected through the atrane moiety. Several syntheses of
2 starting from 5'-O-DMT-2'-amino-2'-deoxyuridine will be evaluated. Prof. William G. Scott of
UC-Santa Cruz will incorporate 2 into the hammerhead substrate by solid-phase synthesis to
obtain a hammerhead ribozyme-TSA crystal structure. Prof. Arthur Pardi of the University of
Colorado-Boulder will similarly determine the structure in solution using NMR spectroscopy.
Analogous approaches will be taken for leadzyme structural studies following the synthesis of
phosphoramidite 3. These experiments will elucidate the magnitude of conformational
rearrangement required to reach the transition state in each of these small RNA catalysts. This
research will also help identify the role of specific RNA functional groups and metal cations in
catalysis. This knowledge is paramount for understanding the pre-biotic "RNA world" and how
our current life forms evolved from it.